NonFredholm Index Theory, Matrix Models, and Hodge Theory

Abstract

Proposal: DMS 9870161
Principal Investigator: Mark Stern

In collaboration with S. Sethi, the PI will analyze the supersymmetric
matrix model quantum mechanics which has been conjectured to provide a
definition of M theory. Crucial to the conjecture is the existence of
normalizable ground states in quantum mechanical gauge theories with
16 supersymmetries. These ground states correspond to gravitons in
the model. We seek to show existence and uniqueness of a groundstate
wavefunction, by computing an L2 index for a large family of
associated non Fredholm, (generalized) Dirac operators. We will
analyze the structure of the wavefunction in order to determine, for
example, the "size" of the graviton. In further work related to the
matrix model, in collaboration with S. Paban and Savdeep Sethi, the PI
will study constraints on the effective action in Yang Mills theories
with 16 supersymmetries. Mathematically, this may be viewed as a
moduli problem for deformations of systems with 16 supersymmetries.
In collaboration with W. Pardon, the PI proposes to establish a
harmonic theory for the L2 cohomology of singular projective varieties
with the metric induced by a projective embedding, extending their
harmonic theory for varieties with isolated singularities. The goal
of such an investigation is to bring to the study of the L2 cohomology
(and conjecturally the intersection cohomology) of these varieties the
same array of tools available for studying complete Kahler manifolds.
This includes Hodge and Lefschetz decompositions and potentially
Bochner type vanishing theorems.

The primary goal of this project is to explore a recently proposed
model for a theory of quantum gravity known as the matrix model.
Mathematically this model has many advantages, but it is not yet
complete and is not yet clear that it gives a physically reasonable
theory. We will perform various (mathematical) tests to determine if
the model does have the conjectured desired physical properties. For
example, we seek to determine whether it predicts the existence of a
stable particle, "the graviton". Then we will try to determine the
structure of this particle and see if the model gives a framework for
computing predicted outcomes to simple processes such as scattering of
gravitons.